Women in Commutative Algebra

This award provides funding for travel to a workshop entitled "Workshop in Commutative Algebra" to be held at the Banff International Research Station in the period October 20-25, 2019. It will feature six different topics within the discipline of Commutative Algebra, with twelve group co-leaders presenting proposed problems of study and directing the research conducted during the week. It will provide new collaborations and strengthen the research network of the forty-two participants in attendance. Researchers at all stages of career are involved, providing opportunities for those in beginning and mid-level positions to not only interact with experts in the field, but to explore leadership opportunities during the workshop.

Commutative algebra is a mature field, with deep roots in number theory and algebraic geometry, yet also with growth in its own right. It has thriving branches bearing exciting fruits, especially as a trio of different decades-old conjectures recently fell, making a collaborative workshop particularly timely. The topics to be investigated at the conference include methods in primes characteristic, Rees algebras, resolutions and complexes, combinatorial--as well as tropical--commutative algebra, and rings of differential operators. This workshop has the goal of bringing together high profile researchers from underrepresented communities. More information can be found at https://awmadvance.org/research-networks/wica/conferences/.